Mathematical Problems in Statistical Mechanics and Quantum Theory

9705779 King There are three projects described in this proposal, all concerned with the physics of interacting many-body systems. The first is "Spontaneous and stimulated emission of photons"; the problem here is to find a useful approximation for the time evolution operator in the simplest interacting quantum field theory, namely a two-state atom coupled to the quantized radiation field, and to investigate stimulated photon emission in this model. The second project is titled "Mutually avoiding self-avoiding random walks"; the goal is to locate the exact phase boundaries of a model of non-intersecting random walks on the lattice and to determine the correlation functions in each phase. The third project is "Scaling behavior of correlations in a critical model", where it is proposed to find the scaling and large deviation properties of an order parameter in a model of non-intersecting random loops on the two-dimensional torus. The broad goal of this project is to elucidate the macroscopic behavior of a large system which is composed of many small components by drawing mathematical conclusions from its microscopic formulation. At the microscopic level, physics provides well-understood laws which allow a consistent mathematical description. The challenge is to predict the macroscopic consequences of these laws. This project focuses on two areas: first, the interaction of photons with an atom, where the macroscopic behavior is the emission and absorption of light, and second, the spatial fluctuations of vortex lines in superconductors, where the macroscopic behavior is the sudden occurrence of long-range correlations. There are many areas in science and technology where local rules may conspire to produce huge effects (for example congestion in high-speed communications networks). This project will use mathematical analysis to address questions of this type in the realm of theoretical physics.